Industry/University Cooperative Research Center for Energetic Materials

9420694 Persson The New Mexico Institute of Mining and Technology's Industry/University Cooperative Research Center for Energetic Materials is being funded for one year under the "Self-Sufficient Partnership for Research" Program. The Center continues to meet the renewal criteria of the Industry/University Cooperative Research Centers Program. Additional funding is provided for an evaluator to study the university/industry interaction occurring in the Center. Funding is also provided for an undergraduate student to augment the Center's ongoing research program with a study on "Small Scale Safety Research." The Program Manager recommends New Mexico Institute of Mining and Technology be awarded: $38,000 for one year (includes $8,000 for an evaluator); and $5,000 for one year with funds provided by the Research for Experience Undergraduates Program.